ESR Student Achievement Data Set Analyses

The goal of this project is to assess the relationship between student achievement in mathematics and science and the System Incentiative Program. We hope to accomplish this through a variety of means. First, we will analyze the existing data made available to the NSF from local SI sites both by itself and relative to other national data sets. Second, we will employ two pilot data analyses to access the fasibility of comparing local test results to a national reference scale of science and math performance (the NAEP). Finally, we will disseminate our findings to the NSF, participating units (such as schools and school districts) and the general public.